Dynamic Synthesis and Processing of High Temperature Materials

This research has three principal focal areas connected with the theme of dynamic stress application and high rate chemical reactions, as follows: (1) shock-induced chemical reactions (with controlled recovery experiments, mechanistic modeling, and time- resolved reaction-rate measurements) and synthesis of novel and metastable materials; (2) dynamic compaction of powders to form metal-, intermetallic-, and ceramic-matrix composites; controlled shock-induced and post-shock thermally-induced reactions to tailor and optimize matrix-reinforcement interface characteristics; (3) combustion processing by self-propagating chemical reactions in powder mixtures, followed by high energy rate densification and reaction sintering. The research is performed at New Mexico Tech. (shock-induced chemical reactions and synthesis), Los Alamos (modeling), Sandia (shock-wave facilities, modeling), Cal. Inst. of Tech. (shock-tailoring of interfacial reactions in composites), and UC-San Diego (combustion synthesis, dynamic densification and post- shock processing) . %%% This is an excellent area of research, where the research has potentially high pay-off with the capability to produce new materials. Modeling of the process variables is needed to permit the scaling up of the process to larger sizes and more complex shapes.